International Workshop on Euler Hydrodynamics: A Proposal for Travel Funding

Partial support is requested for a US contingent to participate in the International Workshop on EulerHydrodynamics, to be held in Assois, France, June 18-23, 2007. Fourteen junior and six senior participants, one-third of them from under-represented groups, will be supported. Euler equations are broadly applicable, and open mathematical questions about the behavior of their solutions persist. It is expected that the broad mix of research scientists invited to the Workshop will encourage cross-fertilization, and stimulate major progress in the theory and application of Euler's equations.